Palm Beach Regional Education/and Training Alliance for Changing Industrial Needs (Palm Beach RETRAIN)

9411521 Roan ABSTRACT Palm Beach Regional Educational and Training Alliance for Changing Industrial Needs (Palm Beach RETRAIN) The University of Florida, School Board of Palm Beach County, Florida Atlantic University, Indiana River Community College, Palm Beach Community College, Treasure Coast Private Industry Council, Business Development Board of Palm Beach County, Private Industry Council of Palm Beach County and Pratt & Whitney have formed an Alliance to meet the educational and retraining needs of displaced defense workers in the Palm Beach area. The goal of the Alliance is to increase high quality employment in Florida by retraining the workforce for commercial manufacturing industries. Sophisticated delivery systems, such as compressed video for interactive distance learning, and educational clearinghouse services will help achieve the Alliance goals. Resources available to the Alliance include the Florida Information Resource Network and the Florida Engineering Educational Delivery System. Industry will provide on-site classrooms, equipment, and support systems. ***